Undergraduate Neurosciences Summer Research Program in Mechanisms of Behavior

DBI-9732149 Abstract The Undergraduate Neurosciences Program at Duke University will give undergraduates the opportunity to become involved in neuroscience research at a major research university. Research and training experiences will be organized around the theme of "Mechanisms of Behavior." The emphasis on integrative systems and behavioral neuroscience that unifies faculty research interests within this interdisciplinary field at Duke serves as the common theme for the individual projects available to student participants in the program. The focus of the 10-week summer program for each student will be a research mentorship with a participating faculty member. Two weekly seminar series - "Research in the Neurosciences" and "Science Basics"- will be included in the summer schedule. "Research in the Neurosciences" will focus on ongoing faculty research so that students in the program gain exposure to the field of neuroscience research beyond their mentor's specific interests. "Science Basics" will address practical matters pertaining to science careers. The summer program will begin with a two-day familiarization retreat and will close with a research forum during which students will make formal presentations of their research projects. Applications to participate in "Mechanisms in Behavior" will be accepted from sophomore undergraduates. The Program is especially interested in receiving applications from women and minorities as well as undergraduates at liberal-arts colleges.